The Topology, Geometry and Arithmetic of Moduli Spaces of Curves

DMS-0103667
Richard M. Hain

The goal of this project is to better understand the
structure of mapping class groups and then to apply this
knowledge to the problem of understanding motives over
the spectrum of the integers. The Principal Investigator
hopes to compute the stable highest weight decomposition
of the graded quotients of the lower central series of
the Torelli groups (tensored with the reals) as modules
over the real symplectic group of rank g. This should be
of interest to those studying 3-manifold invariants. The
Principal Investigator plans to use his knowledge of this
stable decomposition to study the image of the Galois group
of the rational numbers on appropriate completions of mapping
class groups. In particular, he (in joint work with Makoto
Matsumoto) hopes to be able to characterize the Zariski
closure of the image of the Galois group in the group of
outer automorphisms of the relative unipotent completion
of mapping class groups of large genus. This should lead
to improved understanding of the connections between Hodge
Theory and Galois Theory; in particular, to improved
understanding of the role of mixed zeta numbers in Galois theory.
The Principal Investigator also plans to study the
pseudoconvexity of the moduli spaces of curves.
Looijenga has conjectured that there is a proper,
non-negative, (g-2)-pseudoconvex real-valued function
defined on the moduli space of genus g curves. Hain, in
joint work with Looijenga, hopes to prove that the function
that he constructed with David Reed several years ago is
such a function. This result would lead to new vanishing
results for coherent cohomology of moduli spaces of curves
as well as unified proofs of several results of Diaz and
Harer on the topology of these moduli spaces.

Topology is the study of those geometrical properties
of surfaces and their generalizations that remain unchanged
under stretching (short of tearing) and other continuous
deformations. Geometry is the study of those properties
of surfaces and their generalizations that preserve geometric
properties such as distances and/or angles. There is a profound connection between the topological symmetries of a surface
(called the mapping class group of the surface), the geometry
of all of the different ways of measuring angles on such a
surface (the moduli space of conformal structures on the surface)
and the arithmetical properties of the surface when viewed as
the graph of a polynomial. Questions about mapping class
groups and moduli spaces of conformal structures on surfaces
arise in many areas of mathematics (such as the study of numbers,
and algebraic geometry), and have applications to particle
physics through string theory and conformal field theory. There
are also potential significant applications to cryptography. The
goal of this proposal is to further explore and understand the intricate and deep connections between these topological,
geometrical and arithmetical aspects of surface theory,
especially those aspects with connections to number theory.